SGER: Feasibility of Decentralized Search in Mobile P2P Databases

The goal of this project is to provide support for query processing in a mobile P2P database by using a paradigm of data-item store-and-forward. It achieves this goal by 1) developing a ranking function for data-items that incorporates factors such as the supply of a data item in the mobile P2P system, its demand in the system, the size of the data-item, and its reliability; 2) enabling the query processing system to take advantage of a cellular infrastructure when such is available; and 3) developing an incentive mechanism that will motivate users to participate in the query processing system even when they do not have a personal query to process. The research results will enable discovery of local, and possibly temporary, resources in many application domains, including social networks, transportation, mobile electronic commerce, emergency response, and homeland security. This project supports a Ph.D. student to pursue research in the area of mobile P2P databases. Publications, technical reports, software, and experimental data from this research will be disseminated via the project web site(http://www.cs.uic.edu/~boxu/mobidik).